CSR: Small: Collaborative Research: Reliability Driven Resource Management of Multi-Core Real-Time Embedded Systems

The project aims to improve the quality of service and lifetime of real-time
embedded systems, particularly those implemented on multi-core platforms. In
contrast with many other quality metrics, such as performance and power
consumption, reliability is difficult to accurately estimate because it is
influenced by design decisions, environmental conditions, and process variation
during integrated circuit fabrication.

This project consists of three main technical tasks. (1) Develop a reliability
modeling and analysis framework that can efficiently and accurately determine
the impact of design and runtime management decisions on reliability. (2)
Develop a reliability-driven resource management framework, which includes
runtime algorithms for assignment and scheduling of real-time tasks to maximize
system lifetime while keeping soft error rates low, and a lightweight technique
to adaptively adjust the activation frequency of the algorithms (i.e.,
overhead). (3) Develop wear state monitoring techniques and data collection
infrastructure to enable the runtime refinement and validation of system-level
reliability models that require long-term in-field system deployment.

The techniques developed in this project will support the production of more
reliable and/or less expensive electronic devices, enabling integrated
circuits, which are susceptible to wear due to lifetime fault processes to be
used in special-purpose computers with strict reliability and performance
requirements. In particular, this project aims to ease the use of multicore
processors in high-reliability computing applications with deadlines, such as
automotive, multimedia, and health care applications. These applications have
historically seen slow adoption of multicore processors, despite their price,
performance, and power consumption benefits. We believe this is partially due
to gaps in knowledge of how to control and optimize reliability on such
systems, some of which this project will fill. The involvement of both industry
researchers and university students at the undergraduate and graduate level
will result in a broad dissemination of the research results.